Dynamic Latent Variable Models-Likelihood Evaluation

Since the 1970's there has been a major resurgence of interest in the topic of latent variable models. Latent variable models are broadly defined as variables which enter the formulation of an econometric model and yet are not (directly) observable. Latent variables are widely recognized to be major components of the behavior of economic agents. They are inherently dynamic for a broad class of models including intertemporal optimization, search or duration processes, error correction mechanisms, habit formation or persistence, rational expectations and state dependence. The likelihood functions of dynamic latent variable models are mostly analytically intractable, largely because the elimination of the latent variables require high dimensional interdependent integration with the additional complication that the actual distribution of the latent variables conditional on the observables can rarely be seen. Without likelihood functions, it is impossible to rigorously and accurately test economic theories with real-world data because one can not answer the question what is the probability that the observations are due to chance and do not reflect the theory being tested. A number of Monte Carlo simulation techniques have been developed and used to estimate the characteristics of these likelihood functions. The main problem arises from the fact the "brute force" MC estimates of likelihood functions typically take a prohibitively large number of iterations for all but small sample sizes. A number of acceleration techniques are currently available. These techniques can produce fairly dramatic efficiency gains (by a factor of 1,000 or more), but they come nowhere close to what is actually required in order to render MC likelihood evaluation practical for moderate to large sample sizes. The contribution of this project comes from developing a new generic acceleration technique that in a pilot study achieved results unheard of in the econometric literature. All indications are that the new technique might well constitute a major leap in Monte Carlo technology. This project operationalizes the new acceleration technique within the context of a broad range of dynamic latent variable models. By removing a key stumbling block to the analysis of dynamic latent variable models, the new technique opens intriguing new avenues of research across a broad range of important economic applications. In this project the technique is applied it to a set of substantive real-life applications drawn from the recent literature on financial markets, disequilibrium models and housing markets. Systematic comparisons with results derived under alternative techniques provide an assessment of the merits of the new techniques from a practitioner's viewpoint. Software needed to use the new technique will be made available to other researchers.